RI: Small: Algorithms for Sampling Similar Graphs Using Subgraph Signatures

Abstract below:

Graphs and networks are a natural representation across a wide range
of disciplines and domains. Statistical tools have recently been
brought to bear on the analysis of graphs, yielding rich dividends in
various application areas. The aim of this project is to use tools
from statistics and graph theory to develop algorithms that generate
similar graphs efficiently. Since graph data is often expensive to
collect, it is desirable to synthetically generate graphs. To be
widely applicable however, the generated graphs need to both preserve
the semantics of the original data (i.e., be drawn from the same
distribution) and be efficient to compute.

Two key questions form the core emphasis of the current project.
First, how does one measure similarity between two graphs? Second, how
can this notion of similarity be used to generate new graphs? On the
topic of similarity, the project will investigate representations to
preserve global properties, propose new, efficient, representations
for signatures, and explore sampling techniques and their convergence
behavior. On the topic of generation of new graphs, the project will
develop an exponential random graph model using signatures,
investigate feature selection via regularization, propose novel
methods to sample from the exponential random graph model and novel
techniques to produce proposal graphs, and provide rigorous empirical
validation across a range of application areas.

The project will facilitate the study of large complex structures of
the kind frequently encountered in domains like theoretical ecology,
social networks, and chemo-informatics, allowing researchers in these
domains to leverage statistical network analysis tools to identify
significant patterns and understand algorithm performance.

For further information see the project web page:
URL: http://www.stat.purdue.edu/~vishy/graphs.html